Reconstructions and Representations of Cerebral Cortex

IBN 9911035
NIH/NSF Human Brain Project
PI: John S George
MAPPING BRAIN FUNCTION BY COMBINED MRI, MEG and fMRI

The overall goal of this project is to develop composite techniques for noninvasive, functional brain imaging that provide spatial and temporal resolution superior to any available imaging techniques. One objective is to develop a probalistic framework of computational methods for the integrated analysis of multi-modality image data. A second objective is to develop and evaluate advanced forward models for MEG/EEG. A third objective is to enhance experimental and analytical methods for functional neuroimaging (event related fMRI). A fourth objective is to collect physiological data inside the MRI magnet by developing electrophysiological and optical systems with that capability. A fifth objective is to develop and apply computational tools for mapping brain function.